REG: Two-Station Thin Film X-Ray Diffractometer

Partial funding is provided for the acquisition of a two-station thin film X-ray diffractometer for the study of synthesized polycrystalline and epitaxial thin films. The equipment will be part of a central facility which performs general structural characterization for a large number of research projects in surface engineering, tribology and micromachining.